Acquisition of Equipment for Maintaining Environmental Control in Greenhouses

This facility will be used for research that necessitates growing higher plants under controlled environmental conditions in sunlight. A large component of the usage consists of maintaining transformed plants under conditions in which they can flower and produce seed as rapidly as possible. This research involves understanding gene regulation by developmental factors and by environmental factors. A second major component of the usage is to maintain and propagate mutant lines used in research on gibberellin metabolism and light regulation of gene expression. The final major usage is to produce large quantities of normal plant material from many different species for use in research into tissue specific gene expression in tobacco, developmentally regulated gene expression in soybean and in Arabidopsis, the light-harvesting components of photosynthesis in a number of different species, gibberellin metabolism in maize and sunflower, and assessing the nitrogen fixing ability of alfalfa and fast-growing nitrogen fixing trees like Casuarina. Other usage includes the study of gene expression in response to ethylene and wounding, electrophysiological controls of plant cell plasma membranes, particularly in regulation of stomata, and the study of the phytoalexin response in rice.